Sixteen Candles: Growing Up From 0 To 16

9725340 Deborah Edward The Austin Children's Museum will develop Sixteen Candles: Growing Up from 0 - 16. a 1500 sq. ft. interactive traveling exhibition the topic of human development. Visitors will be given the opportunity to learn about the physical, intellectual, and social/emotional changes that are connected with human growth and the branches of science that study human development. Guided by the museum's maxim of exhibit and program development that experience should "build on the familiar and be personally meaningful to varied audiences" this exhibit will have components and activities that highlight similarities and differences between families and children of different cultural and economic backgrounds and family life styles. The exhibit text material will be bilingual, Spanish and English. Complementary educational material will include teacher orientation materials, educator's guide book with pre-and post-visit activities, and various parent -child activities. Museum staff will cooperate with a PBS affiliate and various other community organizations in the development of this exhibit. The exhibit will travel to an additional eight to twelve sites around the country during a three-year period. It will open at the Austin Children's Museum in the spring of 1999.